Raising the Floor: The Development of Selected Experientially Based Mathematics Instructional Modules for Previously Under-Served Target Populations

Two high-school algebra modules will be developed consistent with current research on student learning. Each module will span from four to six weeks of classroom instruction; incorporate the use of technology; and include a curriculum unit, teacher guide, assessment materials and materials to support community-based mathematics literacy events. One module will use the "Road Coloring Problem" to introduce students to functions and lay the groundwork for matrix multiplication. The other module will use games to enhance students' mathematical understanding, and will help students learn polynomials and introduce elementary counting and probability concepts. The materials will embody a pedagogical approach whereby mathematics emerges from students' careful observation and systematic analysis of familiar events that are mathematically rich. Teachers using the materials will form professional communities by collaborating online. The materials will be pilot- and field-tested in several geographically and demographically diverse sites. The project will have formative and summative evaluation components.